RET-PLUS: Research Experiences for Teachers - Program Linked to Urban Schools

This award provides funding for a three year continuing award to support a Research Experiences for Teachers (RET) Site, at Northeastern University, entitled, "Research Experiences for Teachers-A Program Linked to Urban Schools (RET-PLUS). This program will be conducted by the Center for the Enhancement of Science and Mathematics Education (CESAME), in collaboration with the Center for Subsurface Sensing and Imaging Systems (CenSSIS), and Engineering Research Center. The program will provide a six-week summer research experience for ten urban middle and/or high school math and/or science teachers and one undergraduate education student.